Purchase of Nuclear Magnetic Resonance Spectrometers

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at The University of California in Los Angeles will acquire a 500 MHz NMR Spectrometer. This equipment will enhance research in the following areas: a) synthesis, reactivity and characterization of novel carborane- and polyhedral borane-containing compounds; b) synthetic organic chemistry; c) synthesis via organometallic chemistry; d) endohedral metal complexes of fullerenes; e) supramolecular and macromolecular chemistry; and f) polyazacarbons and polyazaheterocarbons for materials research.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. Results from these NMR studies will be especially useful in polymer and materials chemistry.